PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Anatoly Preygel is "Higher-categorical tools in singularity theory and algebraic-symplectic geometry." The host institution for the fellowship is University of California, Berkeley, and the sponsoring scientist is Dr. Constantin Teleman.